Faculty Enhancement in Molecular Biotechnology

This proposal is to renew funding for a faculty enhancement workshop in molecular biotechnology. A two-week summer workshop in the well-equipped laboratories and computer facilities of the Department of Biological Sciences will provide hands-on experiences in molecular biotechniques including recombinant DNA technology, protein purification, vector construction, cDNA and genomic library construction for college faculty from regional two- and four-year colleges. The Workshop is designed to allow the transfer of molecular technology from the workshop laboratories to the participants' home institutions. A faculty enhancement seminar series aimed at the professional development of participating college faculty will continue throughout the post-workshop year.